Tenth VPI&SU on Structural Dynamics and Control, Blacksburg, VA, May 8-10, 1995

9521702 Meirovitch The objectives are to provide a forum for exchange of ideas on structural dynamics and structural control and to disseminate results of research in the areas. The symposium aims to bring together researchers from a board spectrum of engineering areas, such as aerospace, civil, electrical and mechanical engineering, as well as engineering mechanics. The scope of the symposium has changed and expanded over the years so as to reflect the interests and needs of the technical community. The symposium covers theoretical, numerical and experimental developments.